SGER: Yukon-Kuskokwim Fisheries in Yup'ik Oral History and Place Names

This project is a Small Grant for Exploratory Research to explore community receptivity and to create an open dialog between state and federal resource managers, researcher, and Yup'ik communities on the opening of the BIA ANCSA 14(h)(1) collection, Historical Places and Cemetery Sites, consisting of oral historic interviews, maps, photographs and other data of great interest to all four groups.